Establishment of Extended General Physics - An Alternative Course for Underprepared Students

Establishment of Extended General Physics - An Alternative Course for Underprepared Students Rutgers is the state university of New Jersey located in a urban area with 33,000 students on its New Brunswick campus. Most undergraduates at Rutgers are first generation college students and 30 percent are minorities. Many are underprepared to succeed in the sciences. Our proposed project is to create a physics course specifically for underprepared science and pre-health profession majors that is rigorous, laboratory based, and non-threatening. Based on our experience with a somewhat similar course for engineering students and the research findings and developments of others, we are designing a program with active lectures, cooperative learning, and qualitative and quantitative laboratories that will help our students succeed in science and pre-health profession majors and be exportable to other colleges and universities schools.***//